Mathematics Activities in Science Museums

ESI 99-06982
ANDERSON

The Association for Science-Technology Centers (ASTC) will gather data and develop a report to the field on mathematics activities in science museums. The purpose of the Small Grant for Exploratory Research (SGER) grant is to support initial research on the current status of mathematics in science museums, to document exemplary models for the field, and to determine the feasibility of a mathematics initiative for science museums and their client schools. The final product, a document similar to the NSF-funded publication "First Hand Learning," will serve the field as well as the education community in seeking better approaches for improving mathematics education.